Crystal Seed-Embryos Interactions: Their Significance For Nucleation And Aggregate Formation In Crystallizers

CTS-9316096 Tufts University Gregory Botsaris The objective of the proposed research on crystallization is the development of a new theory to explain kinetic data from industrial crystallizers at intermediate or relatively high supersaturations under conditions where neither primary nucleation nor contact secondary nucleation is dominant. The approach combines theories on colloidal suspension with those of nucleation by focusing on embryos or clusters which are below a critical size for spontaneous, isolated growth. Integrated, inverse power representation of attractive forces among embryos and between embryos and seed crystals will be evaluated as a basis for determining embryo concentrations near a crystal. Particle kinetic growth models are to describe agglomeration or coagulation. Theoretical findings will be compared with experimental observations. Crystallization is a very important separation process which is used to purify many compounds in the food, chemical and pharmaceutical industries. Results from his project should improve quality of many products as well as lower cost.